Gordon Conference on Theoretical Biology and Biomathematics

The investigators organize the Gordon Research Conference on
Theoretical Biology and Biomathematics. The conference has nine
formal sessions, each consisting of 2-3 oral presentations with
an introduction by a leading scientist in the area, and two
afternoon poster sessions. A wide variety of topics, ranging
from global environmental models to mathematical neuroscience to
genetic regulation networks, are represented. The unifying theme
of the conference is quantitative modeling of complex biological
networks. Invited speakers are selected on the basis of their
expertise in the respective areas, at the same time emphasizing
gender balance, minority representation, and incorporating
promising junior researchers.
The primary goal of this conference is to bring together
established and young investigators from the field of
quantitative biology to share their approaches and progress and
to discuss the perspectives. Such a multidisciplinary conference
is very important for identifying challenges in biology,
biotechnology, and medicine that require quantitative modeling
and computational approach. Moreover, the participation of
students and postdocs helps to increase the number of people
working in areas of quantitative biology.